Equipment: Scripps Institution of Oceanography - Oceanographic Instrumentation

Scripps Institution of Oceanography (SIO) requests funds for oceanographic instrumentation that is needed to carry out NSF-supported scientific research. Working within the collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), the proposed instrumentation will be maintained by the SIO ship technical services department for use by researchers from institutions nationwide who require these seagoing facilities.

With this proposal, SIO provides technical descriptions and rationale for the acquisition of the following Oceanographic Instrumentation:

1) Multibeam Echosounder Spares, Sally Ride and Roger Revelle $298,401
2) Salinometers, Oceanographic Data Facility $93,636
3) Computing Hardware, Portable Multi-Channel Seismic System $39,923
4) Portable Magnetometer System $71,162
5) Precision Time Protocol Time Servers, Sally Ride and Roger Revelle $29,108
5) CTD Support Instrumentation $78,463
6) Theater Hoist, Roger Revelle Pipe String $7,520
7) Other direct costs (shipping, CA tax, etc.) $55,552
8) IDC $9,339
$683,104
Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.